Collaborative Research: Variation in Exceptive Structures

All languages are able to express universal statements, even though we realize that they are seldom literally true. Consequently, languages also have means of expressing exceptions to such generalizations, via exceptive constructions. English examples include "Everybody but Sandy laughed" and "Everybody laughed except Sandy". Linguistic means of expressing exclusion have received modest attention from philosophers of language and semanticists, whose focus has been primarily on English. Beyond that small body of work, little is known about exceptive constructions across the world's languages: how they are built, what their distribution is within individual languages and across languages, and how they compare to other constructions expressing comparison or contrast. This research project fills this gap as the first cross-linguistic investigation of lexical, morphological, and syntactic properties of the construction. Understanding exceptive constructions allows linguists to create better theories of language structure and to predict the range of variation in natural languages; it helps computer scientists build better parsing models; it gives language educators new dimensions that should be emphasized in language teaching, and it provides cultural anthropologists with additional tools to study societal (dis)similarities in the concept of exclusion.

This research project employs methodologies from linguistic typology, theoretical syntax, and formal semantics to carry out in-depth investigations of exceptive constructions in a wide range of the world's languages. The project aims for maximum linguistic coverage by using sampling techniques of modern linguistic typology. Theoretically, the project addresses a range of questions that arise from the empirical findings. In particular, it analyzes the contrast between free and connected exceptives, phrasal and clausal exceptives, and coordinated and subordinated exceptives. The project develops diagnostics that reliably identify the different types of exceptives and identifies independent linguistic properties that correlate with these different types of exceptives in a language. Therefore, it allows researchers to predict the type of exceptive constructions in an individual language. Beyond developing a picture of exceptive structure cross-linguistically, the project has notable implications for current theories of ellipsis. The project provides data on low-resource and endangered languages and highlights the importance of linguistic diversity for a complete understanding of the human language system.